USA/CIS Joint Conference on Environmental Hydrology and Hydrogeology, May 15-21, 1993, Washington, D.C.

This is an award to assist in the support of a conference on Environmental Hydrology and Hydrogeology. This conference under joint sponsorship of the United States Geological Survey and the Russian Academy of Sciences will be held in Washington, D.C. from May 15- 21, 1993. The conference will address major issues that relate to impacts of industrial and agricultural practices on the hydrologic environment including their impacts on global climate change. National Science Foundation (NSF) programs jointly supporting this award are the Environmental and Ocean Systems and the Natural and Man-Made Hazards Mitigation Programs in the Engineering Directorate; the Hydrologic Sciences Program in the Directorate for Geosciences; and the former Soviet Union Program in NSF's Division of International Programs. Results of this conference are expected to provide guidance to the National Science Foundation in planning and support of research in environmental and ocean systems engineering, natural and man-made hazards mitigation, hydrologic sciences, and to assist in improving the participation and understanding of U.S. science and engineering communities in new opportunities for research cooperation with scientists and engineers in countries of the Confederation of Independent States, formerly known as the Soviet Union.